US-France Collaborative Research: Statistical Signal Processing, Vision Discrete Event Systems and System Theory

This award will support collaborative research in electrical engineering and computer science between two US and French groups. The US researchers are: Drs. Allan Willsky and Sanjoy Mitter, Massachusetts Institute of Technology, and Dr. Bernard Levy, University of California at Davis. The French researchers are: Drs. A. Benveniste, R. Nikoukhah and M. Basseville, French National Institute for Computer Science and Automation (INRIA). The research will focus on five topics: 1) multi-resolution statistical signal and image processing, including the development of novel multi-scale stochastic models for efficient and highly parallel algorithms 2) discrete event systems, including the blending of concepts from computer science and control in order to develop an effective methodology for the monitoring and control of complex systems 3) noncausal system models and efficient parallel algorithms for optimal estimation 4) distributed parameter systems, including a complete treatment of infinite dimensional systems and 5) system and estimation-theoretic approaches to computer vision. The project will benefit from the history of previous and successful collaboration between these two groups and the extensive and complementary expertise of the US and French investigators.